Frontiers and Interfaces of Ion Exchange

Abstract

International Travel Grant: CTS-0621659

PROJECT SUMMARY

An international workshop entitled "Frontiers and Interfaces of Ion Exchange" is scheduled to be held in Antalya, Turkey during June 11-15, 2006. The workshop addresses the field of ion exchange-- is a broadly applicable science that relates to catalysis, drug delivery, sensors, bioseparation, membranes, ore beneficiation, metallurgy, food purification, polymer synthesis, inorganic materials, biorenewable energy, water treatment, environmental processes, nanotechnology and several others. The primary thrust of the workshop is to serve as a vibrant inter-disciplinary
platform for sharing new knowledge in the field of ion exchange by bringing together
researchers and professionals from diverse areas of science and engineering. Seven invited speakers have been identified from U.S. academic institutions as invited speakers/discussers for the workshop. The travel grant provides partial
financial support for the travel, lodging and registration of the seven invited U.S.
speakers.

Intellectual Merit
The workshop will bring together researchers from academic institutions and industries, graduate students and postdoctoral scientists, and provocative scholars, in a setting that will promote cross-fertilization of ideas, thereby enriching seemingly disjointed professional areas. More specifically, the cross-disciplinary workshop will help:
(1.) Provide the most recent developments and breakthroughs in diverse areas
related to ion exchange; (2). Identify scientific hurdles in different areas and allow collective participation for
their solution.

Broader Impacts
Knowledge acquired by researchers from their counterparts in other areas may provide
necessary tools leading to innovation or discoveries in their own areas. For example, the
mechanism of controlled drug delivery in the area of medicine may well be incorporated
after necessary modification for nutrient delivery for environmental remediation of
hazardous waste sites. Post doctoral and graduate students will be appropriately
exposed to other disciplines, thus offering them opportunities to move into other
professional areas. It is also likely that the university professors will be inspired to teach
cross-disciplinary courses in their own academic institutions. Specific industry-academic
research opportunities are also likely to evolve from the workshop.

The 1414 program will provide $4,000, and the 1415 program will provide $3,000 to support this workshop all in FY 2006.